RUI: Analysis of Cytoplasmic Localization in the Embryos of a Polyclad Turbellarian

The objective of this project is to examine the role that cytoplasmic determinants play in the development of polyclad flatworms, one of the most primitive of the spiralians with typical quartet spiral cleavage. Early determination is characteristic of the polyclad Hoploplana inquilina but is less rigidly programmed than that of the higher spiralians. Dr. Boyer proposes to develop a cell lineage of the hoploplana embryo, an important tool for analyzing experimental data, by injecting fluorescent dextran into blastomeres and tracing the fluorescence to larval structures. She will examine development of specific larval structures, the determination of symmetry, and the time and site of localization of determinants by using blastomere deletion and separation techniques, cutting uncleaved eggs, and altering cell geometry. In addition SEM and TEM will be employed. %%% Cytoplasmic localization is a fundamental developmental mechanism employed by eggs and early embryos in determining the ultimate body plan of the adult. This process is most easily studied in simple systems. This study will contribute to our understanding of one of the universal mechanisms of early development from both ontogenetic and phylogenetic perspectives.